Alabama Research Infrastructure Improvement Program

The goal of the Alabama EPSCoR initiative is to create three multi-campus
Centers of Excellence reflecting research programs in biological and
environmental sciences, materials science and technology, and information
science and technology. The Centers include: (1) the Alabama Structural
Biology Consortium (ASBC) which will create a critical mass of scientists in
structural biology from the University of Alabama, Huntsville (UAH), the
University of South Alabama (USA), and the University of Alabama, Birmingham
(UAB); (2) Integrated Micro-Electromechanical Systems (IMEMS) Center will
combine the efforts at University of Alabama, Huntsville, the University of
Alabama, Tuscaloosa, Auburn University and Tuskegee University to develop the
infrastructure required to integrate optical elements and nanostructures within
Micro-Electromechanical (MEMS) devices. The IMEMS Center will offer
continued growth of information technology and development of novel computer
and telecommunications devices. (3) Large Scale Electromechanical Systems
(LEMS), a consortium of composed of the University of Alabama, Tuscaloosa,
Auburn University, University of Tulsa, Shelton State Community College, and
the Alabama School of Mathematics and Science along with six industrial and
two federal partners. The LEMs Consortium will focus on system integration in
conjunction with improving performance, reliability, and efficiency while
decreasing costs and environmental hazards through use of electromechanical
systems.
Infrastructure support of the Centers will include numerous education and
outreach activities that will broaden the reach and impact of the proposed project.
In addition, An Internet2 initiative will further develop the state's information
technology infrastructure. The initiative will provide the interconnective high
speed networking infrastructure necessary for communication and collaboration
of all the universities operating as cohesive Centers.